Providing Access to Scientific Awareness for Minority Populations by Changing the Paradigm -- A Planning Grant

This planning grant is designed to increase science literacy in Native Americans by developing education materials for families that incorporate both a tribal worldview and western science. The intended impacts include an increased value of scientific awareness, acquisition of scientific principles using intergerational learning and enhanced science literacy. The project deliverables include nine toolboxes that will contain tested STEM activities and two planning booklets. Project partners include the Northwest Indian College and the Mt. Baker School District. Strategic impact will be realized through the development of culturally sensitive strategies that can be used to engage Native audiences.